STAR (Scholarship Team in Action to Recruit) Program

Six high need school districts in Southeastern North Carolina, an educational business and the University of North Carolina at Wilmington (UNCW) form the STAR (Scholarship Team in Action to Recruit) Program for the purpose of producing more highly qualified STEM teachers for those school districts. The STAR team from UNCW consists of six STEM faculty, six education faculty, and one faculty member on a joint appointment between Marine Science and the School of Education. In an effort to accommodate the busy and demanding lifestyle of their student population, both in class and online instruction is included in the teacher training programs. The goal is to recruit, retain, and induct at least 25 STEM majors and 40 "career changers" into the teaching profession.